Collaborative Research: Structures and properties of synthetic mucus

NON-TECHNICAL SUMMARY
Mucus is one of nature's most versatile soft materials. It helps living systems hold water, reduce friction, protect delicate surfaces, and regulate movement across biological interfaces such as the eye, skin, lungs, and digestive tract. Despite its importance in health and biotechnology, scientists still do not fully understand how mucus achieves this unusual combination of properties or how to recreate them in synthetic materials. This project addresses that challenge by developing synthetic, mucus-like materials whose water retention, lubrication, adhesion, and mechanical behavior can be systematically controlled, providing a new class of scalable biotechnology products that can be manufactured more reproducibly and tailored more precisely than natural mucus. The project serves the national interest by expanding basic knowledge at the interface of chemistry, materials science, and biotechnology and by enabling scalable biomaterials with strong commercialization potential. More broadly, this project contributes to the national interest by laying the foundation for new biotechnology products that can improve heath, strength economic competitiveness, and support future commercialization. Education and outreach activities associated with the project provide interdisciplinary research experiences for undergraduate and graduate students and engage younger students in materials science and biomaterials, with the goal of broadening participation in STEM and strengthening the biotechnology workforce.

TECHNICAL SUMMARY
This project develops biomimetic synthetic mucus formulations to establish composition-structure-property relationships that govern water sorption, water-responsive mechanics, rheology, lubrication, and adhesion in mucus-like soft materials. The central hypothesis is that reproducing the functional behavior of natural mucus requires multicomponent synthetic formulations rather than synthetic mucins alone, and that the properties of these formulations can be predictably tuned by varying the composition of synthetic mucins, matrix proteins, ions, and related components. To test this hypothesis, the project pursues three objectives: (1) create a series of hypothesis-driven synthetic mucin structures, (2) formulate them into multicomponent gels with matrix proteins, and study their water-sorption profiles, water responsive stiffness, adhesion, and rheological properties, and (3) investigate these synthetic mucuses within soft-soft and hard-soft contacts intended to represent natural systems where mucus is commonly found. The work combines synthetic polymer and glycopolymer chemistry with soft-matter characterization, including rheological, tribological, and mechanical measurements, to identify predictive rules for designing tunable mucus-inspired biomaterials. By connecting molecular composition to emergent interfacial and mechanical function, the project establishes a scalable biotechnology platform for synthetic biomaterials and provides a foundation for future translational and commercial development in applications requiring adaptive, water-managing soft interfaces.